Research Experiences for Undergraduates in Chemistry at Bowling Green State University

Dr. Elliott L. Blinn and other members of the Chemistry Department and Center for Photochemical Sciences at Bowling Green State University are being supported to continue a Research Experiences for Undergraduates (REU) site in chemistry. For the period 1995-97, twelve undergraduate students will spend ten weeks each summer actively engaged in basic research projects focusing on photochemical sciences with applications ranging from biomedicine to industrial chemistry. A unique feature of the program is activities at the academic/industrial interface including a visit to a pharmaceutical industry, seminars featuring industrial chemists, and discussions of careers in industry.